Digital Government: The Virtual Citizen: Identity, Autonomy, and Accountability

EIA-0227651
Jean L. Camp
Harvard University

Digital Government: The Virtual Citizen: Identity, Autonomy, and Accountability

This proposal will apply Camp's unusual multidisciplinary expertise (Engineering and Public Policy Ph.D.) in the area of trust, an area with both technical and social implications. She will use this small grant to develop government relationships relevant to preparation of a workshop in this area and to place the issue of "trust" within a government context.